SHF: Small: Foundations and Applications of Higher-Dimensional Directed Type Theory

A central objective for computer science is to develop methods for building
reliable and maintainable software. The most important technique for ensuring
these properties is abstraction, the decomposition of a system into separable
and reusable components. The theory of abstraction in programming is called
type theory. A type is a specification of the behavior of a software component;
type checking ensures that programs obey these specifications. This ensures
that components can be modified or replaced without fear of disrupting the
behavior of other components. By supporting the expression and enforcement of
component behaviors, type theory integrates programming with verification, the
process of ensuring compliance with specifications. All modern programming
languages and development methodologies are based on, or draw inspiration from,
type theory. The broad goal of this project is to extend the capabilities of
type theory to a wider range of properties, and to use type theory to facilitate
the development of reliable software.

Specifically, the research will develop the theory of higher-dimensional type
theory, and explore its application to generic programming, a technique
for generating programs from their specifications. Higher-dimensional
type theory draws on recent advances in category theory and algebraic
topology that emphasize the algebraic structure of relations between
programs, and relations between such relations, in direct analogy with
the higher-dimensional structure of topological spaces. In this setting
dependent families of types must respect the algebraic structure of such
relations, and in doing so, they implicitly provide transformations that
correspond to generic programs whose behavior is determined by their
type. More broadly, the project will apply ideas from category theory
and topology to improve software development, and apply ideas from type
theory to facilitate computer-verified proofs of mathematical theorems.